Workshop: Polar Processes in Global Climate

A jointly supported NASA, NSF workshop will examine bipolar processes of climate change. Research results and climate models suggest that climate changes observed in Antarctic and Arctic records have occurred similarly in both polar regions. The workshop participants will examine the recent results collected seaprately at the two poles and discuss a strategy for modeling climate changes that involve bi-polar interactions of the climate. The increased communication between scientists separately studying Antarctic or Arctic climates will foster development of better models and enhanced collaboration that will lead to improved understanding of global climate changes.